Student travel Support for IEEE Symposium on Security and Privacy

This award will support travel of approximately 15-20 U.S. students to the annual IEEE symposium on Security and Privacy, held this year on May 22-25, 2011. This is one of the primary research conferences in this field. Attending this particular symposium can be of significant value in starting students on effective careers in this field, which is of vital national interest.